Structural and Metamorphic Evolution of the Walker Lee Lake Arrigetch Peaks Region, Central Brooks Range, Alaska

During development of collisional orogens high pressure-low temperature metamorphism commonly forms during the subduction phase, but is often obscured by post-tectonic thermal equilibration or by later deformation and mineral growth. The metamorphic core of the Brooks range exposes regional high pressure-low temperature rocks adjacent to lower grade fold and thrust belt rocks. This project will map structures across this structural/metamorphic boundary, conduct thermobarometry on collected samples and perform radiometric age determination. Results will be used to characterize the metamorphic and structural conditions during orogenesis and to determine the uplift history of these high pressure/low temperature rocks.